Nonlinear Waves and Particles in Space Magnetoplasmas

It is planned to develop coherent phase models of Langmuir waves turbulence driven by field aligned electron beams in the moderately magnetized lower auroral region and compare the numerically determined time-dependent solutions of these equations in two and three spatial dimensions with current rockets and planned satellite high time resolution measurements of Langmuir turbulence. *** //